Bio-SCOPE: A Project to Create Biology-Driven Student-Scientist Partnerships

9730411 Robinson This project is to develop, test and distribute nine interactive biology learning programs that are designed to use Web-based CD-ROMs ("Web-on-a-Disc"), and have accompanying activity sets and teacher guides. Inquiry-based activities are based on light microscope images that lead to a wealth of images from electron microscopy (Scanning Electron Microscopy SEM and Transmission Electron Microscopy TEM ), laser confocal microscopy, fluorescence microscopy and laser flow cytometry. The goal is to use these microscope and research technologies, that are so often used in experimental biological research, to provide teachers and ultimately students with up-to-date biology images that better reflect current cell biology. Subject matter developed with these images includes cellular structures, cell membrane physiology, cell cycle/genetics, plant tissues, animal tissues, protists, fungi and monerans. Materials are developed under HTML using JAVA, the latest WEB technologies and are designed on the CD-ROM Web-on-a-Disc concept. The CD-ROMs are interfaced with the WEB, allowing a multi-platform interactive environment for the user.